Measuring and Improving Memory's Resistance to Software Corruption; Relational Instruction

System designers have long assumed that memory cannot reliably store permanent data because of memory's volatility and vulnerability to software corruption. Memory's unreliability slows system performance by forcing some applications to write data through to disk and hurts reliability for forcing applications that care about performance to throw away 30 seconds of data on a crash. The primary research goals of this CAREER plan are 1) to enable memory to reliably store permanent data even in the presence of operating system or database errors; and 2) to measure how often software faults corrupt memory, both with and without extra protection. The primary education technique of this CAREER plan is relation instruction: spending time and effort relating with students personally. This plan suggests several simple ways, such as group lunches, to do this effectively with large, undergraduate classes; prior experience attests to how caring for students in a personal manner motivates them to learn.